Interior Point Methods for Nonconvex Nonlinear Programming

The work will continue to develop the algorithm of the LOQO
interior point code for general continuous mathematical
programming problems, and expand the range of problems to
which it can be applied. Areas of research include better
detection of infeasibility and unboundedness, better detection
of linear dependence of the constraints, and better estimates
of initial estimates to the optimum point. Work on higher
order methods, which can greatly improve algorithmic efficiency,
will be continued, with particular interest in applying filter
methods. In an attempt to expand the scope of the types of
problems that the algorithm can solve, the research will be
concerned with solving discrete problems using interior point
methods. On type of problem considered will be mixed integer
quadratic programming. Problems of this type commonly arise in
finance. Mixed integer linear programming problems will also
be studied, with an initial focus on quickly finding feasible
solutions. Further work will be concerned with general
complementarity problems, especially those that arise in
economics and engineering. In all cases, appropriate collections
of problems arising from real applications will be modeled
in AMPL. These will be made available via the internet, as will
extensions to the LOQO program.

The LOQO code for solving a variety of types of mathematical
programming problems has been under development for the past
four years as a joint research effort of the principal investigator
and Professor Robert Vanderbei of Princeton University. The code
is made freely available via the internet, and to date has been
downloaded several thousand times. It is used to solve problems
as diverse as engineering design, portfolio optimization, airline
scheduling problems, and is currently being adapted for various
projects in medical research. The proposed research is
concentrated both on improving the efficiency of the code and
increasing the set of problems for which the code can be used.
The new types of problems for which it is hoped the code can
be adapted efficiently are problems with variables that must be
an integer, generally 0 or 1. These problems are extremely common,
and of great practical value. For example, when assigning aircraft
to routes, a whole plane must be assigned to a specific route,
not some fraction of a plane. Including integer variables within
the context an algorithm of this type is very new, and will be
approached initially through important specific applications.